A High Performance Connection for Research and Education

This award is made under the high performance connections portion of NCRI's "Connections to the Internet" announcement, NSF 96-64. It provides partial support for two years for a DS-3 connection to the vBNS. Applications include projects in astronomy, networking research, economics, intelligent network-based tutoring, genetics, distributed mulitmedia information retrieval, remote sensing and aerial image understanding. Collaborating institutions include the Jet Propulsion Laboratory, Carnegie-Mellon, Washington University, SUNY, University of Wyoming, University of Oklahoma, Johns Hopkins University, Naval Research Laboratory and Pennsylvania State University.